Administrative and Logistic Support for a Series of Expert Workshops on Japanese Technology Evaluation

Administrative and Logistical Support for a Series of Expert Workshops on Japanese Technology Evaluation. The overall objective of the Japanese Technology Evaluation (JTECH) study is to assess Japanese research and development in selected high- technology areas and to compare the Japanese efforts with those in the United States with respect to their potential impact on the long-term economic competitiveness of the United States. The assessments will be carried out by panels of U.S. experts who will tour Japanese research and manufacturing facilities as possible, review key Japanese technical literature, and prepare draft reports of their findings. These reports will be reviewed by additional experts at a series of workshops. So far, seven fields of technology have been assessed in the first two phases of the study. This award is for administrative and logistical support in connection with the third phase of the study, in which an additional three technologies will be assessed. Work performed under this award will include assisting in the definition of topics for assessment, recruitment of panel members, translation and provision of appropriate Japanese technical literature to panel members, organizing expert workshops, and editing panel reports.